Doctoral Dissertation in Law and Social Science: The Political and Educative Effects of the Jury Experience

It has been suggested by some scholars over the years that the American jury is a legal, political institution whose benefits to jurors include direct participation in the system and the educative effects of that experience on their own behavior. It is assumed that jury service increases both a citizen's knowledge of and attachment to democratic legal principles and that it can affect the legal behavior and attitudes of those who serve. However, these ideas have not been systematically researched in either the jury or the participation literature. Most jury research has focused on the internal dynamics of the decisionmaking process itself or the administrative aspects of the system. This doctoral dissertation study focuses on the question of whether the above assertions regarding the effects of jury service accurately characterize the consequences of the contemporary jury experience. A combination of in-depth interviews and a panel design, pre- and post-jury service, will be used to measure systematically these effects and to test some of the assumptions of the attitude change and participation literature. In addition, data from the trials in which potential respondents are serving will be gathered, coded, and integrated into the analysis of effects. The extensive use of the jury system in the United States provides analysts of legal, political participation an opportunity to explore an arena that they have been missing. It affords analysts of the jury an opportunity to consider the larger role of the institution they study. In particular, it provides an opportunity to study how jury service affects knowledge of and support for (or criticism of) legal norms and processes. This study helps bridge the gap that exists between jury research, political participation research, and studies of the relationship between legal institutions and political attitudes.